Haldane's rule in plants? A test using Silene species both with and without sex chromosomes

Haldane's rule (HR) is the most universal observation in speciation research on animals, wherein hybridization between species leads to lower viability or fertility in either males with XY sex chromosomes or females with ZW sex chromosomes. Since its inception, an animal-centric perspective has dominated work on HR. This study will test for HR and its genetic basis using five flowering plant species in the genus Silene. Three experiments involving between-species crosses, together with quantitative-genetic analyses, will allow documentation of (1) whether HR occurs in plants for either viability or fertility, (2) the extent to which the autosomes, X and Y chromosomes, cytoplasmic genetic elements, and their interactions are involved in HR, and (3) whether genes controlling male reproductive traits evolve relatively fast and contribute to reduced male fertility.

The results of this study will address fundamental aspects of how reproductive isolation leads to speciation and will therefore be of general interest to most biologists. By working with plants with relatively young sex chromosomes, the research will address the important question of the generality of HR and the timing of the reproductive incompatibilities that lead to HR. The work will allow the training of numerous undergraduate and graduate students in speciation research and evolutionary genetics.